Functional Group Interactions in DNA-Protein Recognition

The mechanisms involved in macromolecular recognition are central to the understanding of gene regulation. This project will examine the nature and relative importance of functional group interactions between proteins and nucleic acids which are responsible for the formation of high affinity sequence-specific complexes. A series of modified oligodeoxynucleotides will be prepared and tested as possible recognition sites for restriction and modification enzymes as well as a selected repressor protein (the tryptophan repressor). The modifications will be chosen in order to minimize structural changes in the B-DNA helix, and will involve the "deletion" or "displacement" of selected functional groups, or the "reversal" of the relative positions of amino and carbonyl residues involved in interstrand hydrogen bonding. These DNA fragments will be prepared by chemical syntheses employing a variety of modified nucleoside derivatives obtained during the initial period of this project. Parallel studies, however, will be directed at the examination of the effects of modified bases upon DNA structure and the implications of such structure modulation upon recognition process. A specific well- characterized structure modulation, that of DNA curvature will be induced without altering the functional group character of the protein biding site and the effects of such tertiary structure modulation upon recognition will be examined. Similar studies will begin with a sequence- specific binding protein (the Eco RI endonuclease) where an amino acid side chain (Arg-200) known to contact the guanine base of the recognition sequence d(GAATTC) will be altered. A mutant protein (with a Cys-200) will be modified by a series of thiol-specific reagents which will introduce the desired functional group character with the correct geometry (distance from the polypeptide chain) at this site. By studying recognition phenomena, using site-specifically modified macromolecules, this project should contribute to the understanding of cellular recognition processes and provide access to a variety of useful biochemical tools.